A Genetic Approach to the Identification of Cell Specific Elements within the SV 40 Enhancer

The transcriptional enhancer of SV40 is the prototype mammalian enhancer and is the most extensively analyzed. Genetic analyses of this enhancer in African Green Monkey Kidney (AGMk) cells have shown that it consists of at least three separate elements each of which can function in cooperation with one another or duplicates of themselves to enhance transcription. To date these genetic experiments have been limited to AGMK cells; it is probable that the SV40 enchancer contains additional elements that have been overlooked because they do not function effectively in AGMK cells. This possibility will be explored by performing genetic analyses in various cell types. This will be accomplished by replacing the enhancer region of the murine papovavirus polyoma with the wild-type SV40 enhancer and/or previously characterized SV40 enhancer mutants. These polyoma/SV40 enhancer recombinant will be used to select for variants with improved growth in a variety of different murine cell types including fibroblast, lymphocytes, and embryonal carcinoma cells. Differing patterns of enhancer rearrangement should be obtained depending on the cell line used which will allow identification of elements displaying different cell- specific activities. This project will lead towards a clear description of the complex array of different elements within the SV40 enhancer.